Molecular Genetics of Differentiation in Drosophila

Sex determination in Drosophila is controlled by a regulatory hierarchy that has been well characterized at both the genetic and molecular levels. However, as with other regulatory gene networks that participate in the control of Drosophila development, very little is known about either the identify of the genes actually involved in the terminal steps of differentiation (sometimes referred to as the "downstream genes") or about how these terminal genes are controlled by the regulatory genes immediately above them in the hierarchy. The objectives of the work set forth in this proposal are to identify as many as possible of the downstream genes responsible for the differentiation of sexually dimorphic adult tissues in Drosophila, and to investigate the molecular mechanisms by which doublesex, the bottom regulatory gene in the somatic sex determination hierarchy, controls the expression of these downstream genes. We will approach these objectives in two ways; by isolating genes specifically expressed in the male and female genital discs, using sensitive novel cDNA subtractive hybridization protocols, and by studying the interaction of the doublesex proteins with yolk protein genes as a model system for the control of downstream gene expression; thus yielding new insights into molecular mechanisms controlling differentiation. It has been known since the 1920s that the determination of sex in the fruit fly Drosophila melanogaster is controlled by the ratio of the number of X chromosomes to the number of sets of autosomes in an individual. When this ratio is 0.5 (as in an XY individual), the individual is male; when the ratio is 1.0 (as in an XX individual) the individual is female. It has not been until the last decade that the genetic pathway and some of the molecular details of this sex determination mechanism have been worked out. It is now clear that the process of choice whether to develop as a male or as a female is under the control of a small number of genes which interact with one another in a complex fashion. The author of this proposal has made previous contributions to our understanding of these interactions. As yet we know very little about how the choice of sexual pathway is implemented. This is a proposal to investigate this unexplored area.